Bridges for Engineering Education: Virginia Tech (BEEVT)

This project seeks to initiate collaborative relationships among engineering and educational faculty at Virginia Tech. The goals are to develop a new degree program in education to enable engineering graduates to earn a master's degree while also qualifying for licensure as technology teachers in the Commonwealth of Virginia, to strengthen pedagogy in freshman engineering courses, and to initiate a collaborative aligning the university's activities with those of corporate stakeholders, K-12 educators, and policy makers to strengthen the infusion of engineering content in K-12 programs in Virginia schools.